Validation of the Equity and Access Rubrics for Mathematics Instruction (VEAR-MI)

High-quality mathematics instruction remains uncommon and opportunities for students to develop the mathematical understanding are not distributed equally. This is particularly true for students of color and students for whom English is not their first language. While educational research has made progress in identifying practices that are considered high-quality, little attention has been given to specific instructional practices that support historically marginalized groups of students particularly as they participate in more rigorous mathematics. The main goal is to validate a set of rubrics that attend to the existence and the quality of instructional practices that support equity and access in mathematics classes. In addition, the project team will clarify the relationships between the practices outlined in the rubrics and aspects of teachers' perspectives and knowledge as well as student learning outcomes.

This project will make use of two existing large-scale datasets focusing on mathematics teachers to develop rubrics on mathematics instructional quality. The datasets include nearly 3,000 video-recorded mathematics lessons and student achievement records from students in Grades 3 through 8. The four phases of this research and development project include training material development, an observation and rubric generalizability study, a coder reliability study, and structural analysis. Data analysis plans involve case studies, exploratory and confirmatory factor analyses, and cognitive interviews.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.